Long Period Response Spectra for Base Isolated Structures

Base isolation systems represent an attractive strategy for protecting structures from the effects of earthquakes. Several different systems exist and the subject has world-wide interest. Successful application of base isolation can reduce structural costs while providing protection against the effects of earthquakes. An important part of the design of structures is the proper specification of the design response spectrum. The research project will develop realistic design spectra for base-isolated buildings and will address low frequency response. The results of the research will provide the designer with design response spectra which will be appropriate for base-isolated structures.